Oregon State University/OCEANUS SSSE

"A request is made to fund new instrumentation for the R/V Oceanus, a 177’ research vessel operated by Oregon State University as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet.

The R/V Oceanus is a general-purpose research vessel owned by the National Science Foundation and operated by Oregon State University. The mission of the ship is to support funded science research in the Pacific Northwest. R/V Oceanus completed 215 days in 2017, 144 (67%) of which were for NSF. In 2018, the vessel is scheduled to sail 176 days with 75% (132 days) of the schedule for NSF. With this proposal, OSU provides technical descriptions and rationale for the acquisition of the following Shipboard Scientific Support Equipment:
1) Blocks with Load Monitoring $56,750

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.